NSF Young Investigator Awards - Workshop on Steroid Hormones and Brain Function: March 2004; Breckenridge, CO

This is a Conference Workshop:
NSF Young Investigator Awards - Workshop on Steroid Hormones and Brain Function: March 27-31, 2004; Breckenridge, CO